National Net'92 Conference

National Net'91 is the fifth in a series of annual conferences devoted to the subject of the National Research and Education Network (NREN). NSF support in the amount of $15,000 is provided to partially defray participant costs of the conference to be held in Washington, D. C. on March 25-27, 1992 The National Network Conferences bring together policy level representatives from the numerous constiuencies which are essential for the design, development, deployment, and operation of a robust, high performance computer network to meet pressing needs for improved research collaboration and productivity in the United States.***